Mathematical Treatment of Evolutionary Ecology

This project is concerned with the study of the effects of natural selection and diffusion on a population consisting of a single evolving species with a genetic system of one locus with two alleles. The model is an example from evolutionary ecology, which is a fusion of population ecology with population genetics. The model is more realistic than those encountered in the classical theory of population genetics because it allows density dependent selection. It is assumed that increase in population size decreases the fitness of the individuals in the population. A future goal will be to study the case of several interacting species, or coevolutionary theory with diffusion. Mathematically, this is a system of reaction-diffusion equations. It is necessary to prove the existence of travelling waves connecting two rest points lying on different invariant manifolds. Each of these manifolds corresponds to the absence of one allele. The stability of these waves will be examined. The results will give a more complete picture of what has been shown by the principal investigator on the asymptotic behavior of solutions to the reaction-diffusion system. It will give insight into the ways to handle systems where the maximum principle is hard to apply.